The Role of Dehydration-Induced Proteins in Plants

Water is important to plants during all stages of development. The lack of sufficient water can place strains on plants, which may result in decreased yields or increased susceptibility to disease. Yet plants not only survive but proliferate on land, even in water- limited environments such as semi-arid areas and deserts. This remarkable ability to tolerate seemingly inhospitable conditions is due to the cumulative effects of nmerous adaptive properties that exist within plants. In seed-bearing plants the best example of such adaptability is the seed itself, which often remains alive in a relatively dry state for many years. Studies over the last decade have demonstrated that growing plants and the embryos (or germ) within dry seeds have much in common at the cellular and biochemical level. For example, certain proteins that accumulate within the cells of growing plants during water-limitation are also found in embryo cells during their normal maturation drying process. Dehydrins are one such group of proteins and are the focus of this research project. The basic question that will be addressed by this rpoject is what role dehydrins play in adaptation to cellular dehydration. The location of dehydrins within plant cells will be determined, and blochemical tests of function will be carried out on dehydrin protein that has been extracted from plant cells. In addition, dehydrin genes will be examined in normal and mutant plants. Through an understanding of the fundamental biochemical role and genetics of dehydrins, it may be possible in the longer term to design new strategies for the development of plants with improved tolerance to environmental stress.